Engineering Research Equipment Grant: LDV Measurements of Water Wave-Structure Interaction

This Engineering Research Equipment Grant is for the aquisition of a Laser Doppler Velocimeter for use in a study of the kinamatics of Wave-Structure interactions. Fluid velocities very close to the solid boundary will be measured with this instrumentation in the run-up of long waves up a sloping beach, and motion incident on a moving surface such as a floating breakwater or a floating platform. Quality laboratory data is urgently needed in these areas both for its own sake as well as in establishing a basis for computer model verification.